AGU Chapman Conference on Scrutiny of Undergraduate Geoscience Education: Is the Viability of the Geosciences in Jeopardy as we Approach the 21st Century? September 7-11, 1994

A. F. Spilhaus DUE 9452955 Amer. Geophysical Union FY1994 $15,000 Washington, DC 20009 SPCLPROJ Title: Scrutiny of Undergraduate Geoscience Education: Is the Viability of Geoscience Education in Jeopardy as We Approach the 21st Century? A Chapman Conference will be sponsored by the American Geophysical Union (AGU) to be held September 7-11, 1994 in Washington, DC. The purpose of the conference is to bring together geoscientists from diverse backgrounds to discuss and develop long-term plans to improve the quality of undergraduate geoscience instruction, including the disciplines of geology, geophysics, meteorology, and oceanography. Support is being used to assure representation at the conference of faculty from all types of institutions.